Collaborative Research: Further Development and Testing of the Target Inquiry Model for Middle and High School Science Teacher Professional Development

This project scales and further tests the Target Inquiry (TI) professional development model. The TI model involves teachers in three core experiences: 1) a research experience for teachers (RET), 2) materials adaptation (MA), and 3) an action research (AR) project. The original program was implemented with high school chemistry teachers at Grand Valley State University (GVSU), and was shown to result in significant increases, with large effect sizes, in teachers' understanding of science inquiry and quality of instruction, and in science achievement of those teachers' students. The scale-up and further testing would involve adding physics, biology and geology at GVSU, and implementing the program at Miami University (MU) with chemistry teachers. Three research questions will be studied:
1) How do the three TI core experiences influence in-service high school science teachers' (i) understanding of the nature of science; (ii) attitudes and beliefs about inquiry instruction; and (iii) classroom instructional methods in two new applications of the TI model?
2) How does teacher participation in TI affect students' process skills (scientific reasoning and metacognition) and conceptual understanding of science in two new applications of the TI model?
3) What are the challenges and solutions related to implementing TI in science disciplines beyond chemistry and in other regions?

The research design is quasi-experimental and longitudinal, incorporating implementation with research, and using quantitative and qualitative methods blended in a design research framework. A total of 54 middle and high school science teachers are being recruited for the study. The TI group is completing the TI program (N = 27; 15 at GVSU; 12 at MU) while the comparison group (same sizes and locations) is not. The comparison group is matched according to individual characteristics and school demographics. All teachers are being studied, along with their students, for 4 years (pre-program, post-RET, post-MA, post-AR/post-program). TI teachers are taking 15 credits of graduate level science courses over three years, including summers. Courses include a graduate seminar focused on preparing for the research experience, the research experience in a faculty member's science lab during the summer, application of research to teaching, action research project development, adaptation and evaluation of inquiry-focused curricula, and interpretation and analysis of classroom data from action research. Consistent feedback from professional development providers, other teachers, and evaluation, including comparison with the previous implementation, contributes to a design-based approach. Teacher factors being studied include beliefs about the nature of science, inquiry teaching knowledge and beliefs, and quality of inquiry instruction. Student factors being studied include scientific reasoning; metacognition, self-efficacy, and learning processes in science; and content knowledge and conceptual understanding. Only established quantitative and qualitative instruments are being used. Quantitative analysis includes between-group comparisons by year on post-tests, with pre-tests as covariates, and multi-level models with students nested within teachers, and teachers within sites, with the teacher level as the primary unit of change. Trends over time between the treatment and comparison groups are being examined. The evaluation is using a combination of pre/post causal comparative quantitative measures and relevant qualitative data from project leaders and participants, as well as from the comparison group, to provide formative and summative evaluation input.

Outcomes of the project include documentation and understanding of the impacts on science teachers' instruction and student outcomes of research experiences for teachers when they are supported by materials adaptation and action research, and an understanding of what it takes to scale the model to different science disciplines and a different site. The project is also producing a website of instructional materials for middle and secondary science.